Workshop: Research Challenges in Data-Centric Workflows

The area of workflow and business process management is undergoing a
significant transformation, because of a shift from process-centric to
data-centric workflow design and specification. The goal of this project
is to articulate key research questions and directions that should be
explored in order to maximize and hasten the realization of the
practical and economic value of the new data-centric approach, through a
workshop that brings together leading researchers and practitioners in
the area.

Emphasis will be placed on research questions that can lead to
new advances in workflow management applicable to e-government, medical
workflow, and scientific workflow. The workshop will produce a report
which articulates (i) the fundamental reasons why the data-centric
approach can provide significant increases in the flexibility and
efficacy of workflows, (ii) key research directions that need to be
pursued to enable this approach, and (iii) ways to incrementally realize
this approach in the targeted application areas.

For further information see the project web page at
http://www.cs.ucsb.edu/~su/NSF/0842993.